Radio Observations of Pulsars

The timing of radio pulses from "pulsars" has become important to a number of areas in physics and astronomy, including the integrity of time-keeping standards, the detection and measurement of the effects of gravitational radiation, the measurement of shifts of the crusts of neutron stars, and the understanding of how pulsars are born, "reborn," and evolve with time. The Principal Investigator (PI) is widely regarded as heading the group doing much of the most precise work on the timing of pulsar pulses. He proposes to continue these observations using improved equipment that he has designed at Arecibo and Green Bank radio observatories. It is expected that this work will continue to be among the most fundamental in linking observational astrophysics and tests of General Relativity.